El Paso Math and Science Partnership

The El Paso Math and Science Partnership (El Paso MSP) includes the three urban school districts that encompass El Paso, nine rural school districts in El Paso and Hudspeth counties, the University of Texas at El Paso (UTEP), El Paso Community College, the Region 19 Education Service Center, and El Paso area civic, business and community organizations and leaders.

The El Paso MSP is aimed at improving student achievement in mathematics and science among all students, at all preK-12 levels, and at reducing the achievement gap among groups of students. The goals of the partnership include:

fully engaging university and community college leadership and mathematics, science, engineering and education faculty in working toward significantly improved K-12 math/science student achievement;

ensuring the number, quality and diversity of K-12 teachers of mathematics and science across partner schools, particularly schools with the greatest needs;

building the capacity of area districts and schools to provide the highest quality curriculum, instruction and assessment, and to ensure the highest level achievement in mathematics and science for every student;

ensuring the K-16 alignment of mathematics and science curriculum, instruction and assessment, to ensure that students graduating from area high schools are prepared to enroll and be successful in mathematics, science and engineering courses at UTEP and El Paso Community College; and

prioritizing research on educational reform and preK-16 partnerships.